Travel: NSF Student Travel Grant for the 2026 ACM SIGPLAN International Conference on Functional Programming (ICFP)

A Programming Languages Mentoring Workshop (PLMW) is being organized annually as a satellite workshop of the ACM International Conference on Functional Programming (ICFP). ICFP is the premier conference on the design, implementations, principles, and uses of functional programming. This award supports students from US institutions so that they can attend the mentoring workshop in addition to the ICFP conference. The award provides opportunities for students to receive mentoring from leading researchers and building the next generation of researchers and knowledgeable practitioners with general expertise in programming languages, and specific expertise in functional programming.